U.S.-Mexico Cooperative Workshop on the Conservation of Neotropical Migrant Birds in Mexico

This Americas Program award will support a U.S.- Mexico workshop on conservation problems of neotropical migrant birds. The workshop, jointly organized by Dr. Steven Sader of the University of Maine and Dr. A. Estrada of the Institute of Biology of the Universidad Nacional Autonoma de Mexico (UNAM), will advance our understanding of neotropical migrant bird ecology and develop strategies for coordination of cooperative research, conservation, monitoring, and training programs. The Breeding Bird Survey in North America has shown that populations of several neotropical migrant birds have declined drastically over the last 10 years. Various studies point to the loss of habitat both on breeding and wintering grounds as a major cause of these declines. Because neotropical migrants are a shared resource between Mexico and the United States, bilateral strategies are fundamental for the conservation of these species. Expected outcomes of this workshop are greater coordination of the monitoring of avian populations and habitats, identification of conservation strategies, training and research needs and of opportunities for future collaboration, and a publication of the proceedings of the workshop.